Theoretical Problems in Condensed Matter and Statistical Physics

9417047 Nelson This research is on a range of topics in condensed matter theory, including columnar liquid crystals, vortex transport and pinning in high-temperature superconductors and fluctuations in two- dimensional spin systems. The emphasis is on defects, intermediate degrees of order, and the interplay between geometry and statistical mechanics. Columnar liquid crystals, often composed of semiflexible polymers, provide fascinating examples of partially ordered systems, with material properties influenced by linear vacancy and interstitial defects. Such defects have no analogue in assemblies of point-like particles. Additional challenging problems arise when the polymers are chiral, as in DNA or the polypeptide poly (y-benzyl glutamate) (PBG). Work on flux pinning in semiconductors is directed at predicting optimal vortex pinning structures, such as splayed columnar defects induced by heavy ion radiation. A complete understanding of the resulting "splayed glass" and flux liquid phases requires an extension of quantum mechanics in the equivalent many-body boson problem to allow for a quenched random imaginary vector potential. Studies of vortex smectics and entanglement around fixed obstacles are also planned. The existence of the flat phase and a continuous broken symmetry in flexible polymerized membranes raises interesting questions about closely related spin systems in two dimensions. Investigations will be made on a dyadic spin model which interpolates between Heisenberg-like systems, for which genuine long-range order is impossible, and tehered membranes, which have now been observed experimentally to exhibit continuous symmetry-breaking. %%% The interplay between geometry and statistical mechanics which arises in certain liquid crystalline polymers, in high temperature superconductors, and in magnetic materials will be studied. Polymer liquid crystal phases, such as those prepared from biological materials, like DNA double helix and certain a rtificial proteins, can be strongly influenced by the effects of chirality, i.e., by the lack of mirror symmetry in these macromolecules. It is hoped to investigate vacancy and interstitial defects, and to understand how chirality can cause such polymers to braid up spontaneously. This work may eventually lead to strategies for synthesizing stronger polymeric materials. Many applications of the new high temperature superconductors require efficient pinning of quantized lines of magnetic field called vortices. In additional work, optimal arrangements of defects in the underlying crystal which pin the vortices in place will be searched. Finally, the relationship between oder in a special class of magnetic materials and the crumpling of sheet polymers will be studied.